Ontogeny of the Motor System: From Neurogenesis to Behavior (Orlando, Florida; November 2002)

The purpose of this satellite meeting of the Society for Neuroscience is to bring together an international group of students and researchers representing diverse fields related to the ontogeny of motor behavior in vertebrates to assess the current status of the field, to discuss strategies for future research, and to establish a foundation for interdisciplinary collaboration. In order to accomplish these objectives, researchers using diverse animal species as well as diverse methodologies ranging from the molecular to behavioral will be invited. This symposium will provide a rare opportunity for scientists from different disciplines and perspectives to develop new collaborations and new approaches to understanding the ontogeny of motor behavior. Announcements and other publicity for the symposium will encourage attendance by women and underrepresented minorities. The summary of the meeting will be published in Neuron as a Meeting Review.